Arakelov theory and quantum cohomology of homogeneous varieties

The investigator will study two different intersection theories in
algebraic geometry: the arithmetic Chow rings of varieties defined
over the integers and the quantum cohomology rings of complex
manifolds. The varieties considered are homogeneous spaces of
Lie groups, and the goal is to understand the arithmetic and quantum
Schubert calculus. This allows one to effectively compute numerical
invariants such as heights, on the one hand, and Gromov-Witten
invariants, on the other. A further aim is to answer related questions
about the combinatorics of modern Schubert calculus and the
polynomials which represent degeneracy loci of vector bundles.

The study of the symmetries observed in geometric objects has been a
meeting point of mathematics and physics for a long time. The many
experiments and computations made in the 19th century eventually led
to the cohomology and intersection theories of 20th century mathematics,
which were applied to solve important open problems in both fields. At
present, we face a similar situation in modern number theory and string
theory, and computations of concrete examples are crucial to guide our
intuition and to better understand the general theories. The investigator
studies two new intersection theories, Arakelov theory and quantum
cohomology, in many examples which are good testing grounds for
both of them. The potential applications are a better understanding of
Diophantine equations and approximation, used in coding theory and
theoretical computer science, and the enumerative geometry of curves,
related to classical algebraic geometry and quantum field theory in physics.